Second International Symposium on Computational Wind Engineering, to be held August 4-8, 1996, Fort Collins, CO

9521654 Meroney This award is for supporting the 2nd. International Symposium on Computational Wind Engineering that will take place in August 4-8, 1996 at the Colorado State University, Fort Collins, CO. The purpose of this meeting is to examine the accomplishments and challenges posed by the rapid development of computational fluid dynamics (CFD) as applied to the discipline of wind engineering. CFD shows significant promise as a means to predict, estimate and mitigate the impacts of extreme winds on buildings, facilities and the infrastructure. The research community, the private sector and the population of wind hazard prone areas will benefit from these exchanges and transfer of knowledge. ***